Teachers' Domain: College Edition

This NSDL project is adapting and cataloguing an existing, successful collection, NSDL Teachers' Domain, for a post-secondary audience (College Edition). The intellectual merit of the project includes the planned collaboration with the NSDL Pathways, Core Integration, and other collections to determine the appropriate content-organizing structure and level of contextualization for a post-secondary audience, as well as criteria for assigning appropriate audience metadata for these resources. The broader impacts of the project include creating an appropriate user interface and technical infrastructure to help expand the NSDL audience. In addition, metadata developed under this edition of Teachers' Domain are fed back into the NSDL Data Repository for reuse by NSDL.org, the Pathways projects, and other collections.